RUI: Analysis of Spokane Low-Level Easterlies

9403636 Ulrickson Many times weather of interest to the public are controlled by factors that are very local in nature. The researchers will study the climatology and dynamics of a low-level easterly flow in the Spokane, Washington vicinity that occurs beneath a regional westerly flow at least a few days each month and in all seasons of the year. Synoptic-scale analyses of weather observations indicate that the environmental flow should be westerly at all levels; therefore, the factors controlling this reverse flow must exist locally, or on the mesoscale. These winds are of more than academic interest. The significance lies in several effects: (1) the easterlies modify temperatures and dew points; (2) when mountain fogs form, the easterlies transport them into the Spokane area; (3) the area's frequent surfaced-based inversions, which strongly influence regional air quality and controls, are modified; (4) because of their diurnal occurrence, the easterlies affect air traffic control; (5) these winds influence the transport of suspended particles and airborne chemicals. The Principal Investigators will attack this problem using climatological and diagnostic studies as well as a mesoscale numerical model. They also will collaborate with forecasters at the local National Weather Service Office with the intent of formulating methods for improved prediction of these episodes. ***